Dissertation Research: Architectural Functions and Social Organization at Pacatnamu, Peru

This project analyzes the function of rooms within architectural complexes at the site of Pacatnamu, Peru in order to reconstruct the social organization of the Chimu (A.D. 1000- 1400). The researcher will test two models that will explain the extent and intensity of the integration of the culture on a community, regional, and societal basis. Evidence for reconstructing social organization is available to archaeologists from several sources. In this project the researcher will use two independent sources of information-- formal architectural analysis and study of access and context analysis of the artifacts recovered during excavations--in a new and novel way in order to identify artifact function and status indicators. The project thus promises to make significant methodological contributions to the study of complex societies, processes of social organization, and architecture.